An Innovative Millimeter/Submillimeter MKID Camera for Multicolor Mapping

0705157-Glenn

This project will develop a Microwave Kinetic Induction Detector (MKID) camera that will operate at four wavelength bands (750 microns, 850 microns, 1.1 mm, and 1.3 mm). The camera will be used at the Caltech Submillimeter Observatory then at the Cornell-Caltech Atacama Telescope. The camera will have an array of 600 4-color antenna-coupled MKIDs for a total of 2400 channels, and will be used for surveys of high-redshift galaxies.